High Speed Dynamics of a Press Feed Mechanism: Computer Simulation, Experimentation and Design Optimization

This project addresses issues in machine science. The key thesis is that optimization of specific classes of industrial machines can have a major impact on U.S. industrial productivity. More specifically, this project investigates lever-type roll feed mechanisms. Such mechanisms have wide applications and are used primarily in the production of sheet metal stampings. Performance is acceptable for a range speed and feed conditions. Beyond this range, erratic behavior occurs. This project generates a comprehensive model and entails a combined theoretical and experimental program to explain the instability.